Spinodal Decomposition and Tricritical Phenomena

The proposal covers three areas of exprimental physics. The first is critical and tricritical phenomena in water-surfactant- oil systems, and the relationship of these systems to the theory of critical phenomena. The second is spinodal decomposition in mixtures of nitroethane and 3-methylpentane, with particular attention to the effect of finite quench rates. The third is the use of silica gels. grown by aggregation of colloidal silica particles, to study random field effects in binary fluid mixtures, as well as diffusion of spheres in such media.